Development of an Aberration Corrected X-ray Photoemission Microscope for Nano-XAFS

9703979 Tonner This award provides support for a new type of microscope to be developed, that has surface sensitivity, very high spatial resolution, and performs spatially resolved x-ray absorption fine- structure spectroscopy (XAFS). This instrument will use the recently invented methods of aberration-corrected electron optics to improve the performance of x-ray photoelectron emission microscopy (X-PEEM) by an order of magnitude. The aberration- corrected X-ray PEEM, or AX_PEEM, will be used in a number of different research programs. These include element-specific magnetic domain microscopy, polymer-metal interface studies, surface reactions on mineral substrates, and surface reactions on single-crystal substrates. These applications will use the technique of nano-XAFS, which the AX-PEEM makes possible. %%% This instrument will perform core-level "spectro-microscopy," a new technique for the non-destructive mapping of chemical domains at surfaces. Specifically, it will be able to take a sequence of images as a function of the energy of the incident radiation. The resultant data can be interpreted as a set of XAFS spectra from individual areas on the sample, or as images of the chemical composition of the near-surface region of the sample, as derived from the spatially varying XAFS spectra. The new instrument will combine high voltage electrostatic electron microscope lenses with an electron-mirror aberration correction scheme. The completed instrument will be a compact, ultra-high vacuum compatible assembly, that will be installed in a portable surface science chamber. The nano-XAFS technique is of interest to a widely interdisciplinary research community, ranging from surface science to biophysics. To meet these varied needs, the system is designed to be easily installed on a number of different synchrotron beamlines in the U.S. ***